Application of Fuzzy Set Theory to Security Constrained Optimal Reactive Power Control in a Milti-Area Power System.

9313586 Shahidehpour This study considers a fuzzy set formulation of the optimal reactive power planning, taking into account the static security constraints and uncertainty in load values. The overall solution will be a compromise between least cost planning (lower investment and operation costs) and security (tighter feasible region). The planning process will be decomposed into investment and operation problems via the generalized Benders decomposition. The operation problem will be decomposed into 4 subproblems via the Dantzig-Wolfe decomposition. Practical examples will be considered for the applicability of the proposed approach to multi-area power systems. ***